Coordination of a Human Arm and a Robot Manipulator

Zheng This is the first year funding of a three-year continuing award. The research studies coordination mechanisms for a manipulator to work cooperatively with a human operator's arm. By coordinating a robot manipulator with the operator's arm, unstructured environments can be approached through the intelligence of the human operator, while the load of the object can be shared by the manipulator and the human operator. A three-step approach is taken to study the arm-manipulator coordination problem relative to compliant motion, reflexive motion, and motion learning. A compliant motion approach is applied to the interaction of a robot with a human operator in order to make the robot move in accordance with motion of the human operator. Reflexive motion is a new mechanism to be developed in this research. The purpose is for the manipulator to respond appropriately to the intention of the human operator when the operator applies a cueing force to the manipulator via the object being cooperatively handled. The result is that the manipulator will move actively and the human operator will not need not to apply continuous cueing forces to the manipulator. Another new mechanism being explored is motion learning. This allows a manipulator to learn a trajectory that best coordinates with the human operator during the compliant and reflexive motion stages. As a result, when the same manipulation task is repeated, the manipulator can use the learned trajectory, further reducing the load on the human arm. This research will lead to a theoretical foundation for the development of human arm- manipulator coordination technologies which could greatly extend the range of robotic applications with benefit to manufacturing, service, and construction industries.